Noncommutative Geometry, Supergeometry, Gauge Theory and M-Theory

Abstract - DMS 0204927

The main goal of the proposal is to apply methods of
noncommutative geometry and supergeometry to the mathematical
problems arising in theoretical physics.
The development of (super)string theory led to the idea that
this theory should by embedded into more general theory
called M-theory. This hypothetical theory should live in
11-dimensional space and the corresponding low energy action
should be given by 11-dimensional supergravity. At this
moment a rigorous definition of M-theory is not known.
Nevertheless, using various heuristic tools (first of all,
dualities) physicists have created a beautiful and
consistent picture, where all versions of (super)string
theory can be obtained as limiting cases.A promising approach
to a rigorous definition of M-theory is based on so
called M(atrix) theory. The action functional of BFSS M(atrix)
model can be obtained from ten-dimensional supersymmetric
Yang-Mills theory ( 10 D SYM theory) by means of dimensional
reduction to (0+1)-dimensional space.(This means that we should
consider only gauge fields that do not depend on spatial
variables, but can be time-dependent.) It was shown by
A.Connes, M. Douglas and A. Schwarz (1998) that
compactification of M(atrix) theory can lead
to gauge theories on noncommutative spaces, in particular, on
noncommutative tori.This paper opened the way for application
of Connes' noncommutative geometry to string/M-theory . It
became very popular, especially after the appearance of the
influential Seiberg-Witten paper (1999) , that contains
together with important new results, the understanding of
Nekrasov-Schwarz noncommutative instantons (1998), gauge
(complete) Morita equivalence defined by A.Schwarz (1998),and
Pioline-Schwarz background independence (1999) from the
string theory viewpoint. The number of papers considering the
relation of string/M-theory to noncommutative spaces grows
exponentially (today it is close to a thousand); many of these
articles were influenced by the papers of A. Schwarz and his
collaborators. A. Schwarz intends to continue his work on
applications of noncommutative geometry to string/ M-theory.
He is planning to analyze thoroughly the general theory of
gauge fields on noncommutative spaces and its relation to the
duality in physics. He would like to apply (in collaboration
with M. Movshev) this general theory to the construction
and analysis of gauge theories on noncommutative curved spaces.
One more direction the PI would like to pursue ( also
together with M. Movshev) is a search of formulation
M(atrix) theory ( and, more generally, maximally supersymmetric
gauge theory) in a manifestly supersymmetric form. The solution
of this problem is interesting by itself, but M. Movshev and
A. Schwarz are planning to use it also as a starting point in
the construction of a maximally supersymmetric Dirac-Born-Infeld
action for nonabelian gauge fields and on noncommutative
spaces. A. Schwarz is planning to develop a complex version of
Connes' noncommutative geometry and the theory of
noncommutative theta functions having in mind possible
applications to noncommutative instantons and other BPS
fields.He aims also to study the role of K-theory in
string/ M-theory. M. Movshev is planning to analyze
algebraic structures arising in open string field theory.

It is clear now that noncommutative geometry is quite useful
in physics. The PI intends to develop methods of
noncommutative geometry and to apply these methods to
various problems arising in string/ M-theory. It seems
that noncommutative geometry should play an important role
in rigorous formulation of M-theory. The PI hopes that
his work will contribute to the search of appropriate
mathematical formalism.